Flow of Gas-Particle Suspensions Through Standpipes

ABSTRACT CTS-9421661 An experimental investigation and corresponding theoretical studies of gas-particle suspension flow in vertical pipes will be undertaken. Particle concentration and velocity distributions will be measured in the pipe cross-section using the techniques of electrical capacitance tomography (ECT). The concentration fluctuations and their spatial will be measured and spatially correlated. A twin-plane system will allow to obtain the particle velocity from the cross-correlation of concentration fluctuations. The results will be used to improved basic understanding of the two-phase flow phenomena and calibrate numerical simulations. The research has relevance to the design and operation of fluidized beds, pneumatic transport, silos, solid feed hoppers, and other equipment in particle processing industries. ***